REG: Cold Chamber for Ice Testing

The proposed state-of-the-art testing equipment will be used to significantly augment the flexibility and capability of a long- term research program aimed at providing a fundamental understanding of freshwater and sea ice physical properties, deformation processes, and mechanical properties. This engineering knowledge is required in the design of structures to resist floating ice sheet impact, the transport and traffic of vehicles on natural ice covers, and the promotion of ice penetration and ice breaking. The equipment will provide means of testing for thorough characterizations of ice microstructure, accurate specimen preparation, and data acquisition/reduction directed toward theoretical analyses.